Networking Our Research Legacy: Infrastructure to Document, Manage, and Access Ecological Data Resources

Abstract

DBI-9983132

McCartney Arizona State

Networking our Research Legacy; Infrastructure to Document, manage, and Access Ecological Data

Summary

This project proposes to develop an information infrastructure that will greatly enhance access to a broad spectrum of ecological data resources at Arizona State University. A suite of existing databases that inventory metadata, taxonomic data, and bibliographies will be cross-referenced and enhanced to support spatial queries and searches via national clearinghouses for geo-spatial, taxonomic and collections data. Through development of a series of tools for automated processing of metadata and data, searches for primary datasets will be able to fluidly direct the user to online preview and query interfaces. These tools will provide several key functions that leverage the power of metadata in automating data access, including simplifying metadata generation, metadata reporting and display, rapid application for data query, and simplifying data import and export over the Internet. The use of open standards such as eXtensible Markup Language and Java and the modular approach to development taken by this project will ensure the flexibility that will allow rapid support for new datasets within the infrastructure and the development of interfaces that address the data needs of diverse target audiences. Prototype applications that illustrate the use of these tools will be developed for three such audiences: academic research, education, and management.